Cooperative Chemistry Laboratories: Faculty Enhancement

This project aims to acquaint faculty, general chemistry coordinators, and lab directors with the theory and practice of cooperative learning in the general chemistry laboratory. Participants are invited from all institutional settings including two-year and four-year public and private colleges and universities. Cooperative modes of instruction that have proven to produce remarkable improvements in student attitudes toward chemistry, persistence, and success in learning have been developed at Clemson University. The method uses a new set of laboratory software, SuperChemLab, for the project-style laboratory exercises, which will be available to participants for their own applications. The workshop assumes that participants will adapt and adopt the cooperative learning mode for their own laboratories, and several features of the program including hands-on experience are aimed at facilitating this process. Instructor's manuals, texts, and background materials will be provided and considered in small groups during the workshop.